Physics of Nonlinear Collapse Processes in Plasmas

9421693 Wong Experiments investigating collapse processes in plasmas under the most general driving sources-electron beams, electromagnetic waves and azimuthal currents will be investigated. The experiments probe interesting questions of nonlinear and chaotic behavior in plasmas with an emphasis on the physics of the collapse of cavitons. The research as applications to ionospheric and astrophysical phenomena. ***